MRS Symposium BB: The Granular State; San Francisco, CA; April 24-28, 2000

0076869
Pachavis
This award provides support for graduate students, postdoctoral fellows and young faculty members to attend the Spring Materials Research Society Symposium BB: The Granular State. The symposium will be held in San Francisco, CA, on April 24-26, 2000.

The past decade has seen an explosive growth of interest in the physics of the granular state. Granular media are comprised of macroscopic objects with internal degrees of freedom. Granular assemblies exhibit phenomena that cut across the properties of traditional solids, liquids and gases. Hence, one can think of the granular state as a unique state. In many ways, the granular state is a generalized state of matter.

The symposium will provide and interdisciplinary forum for the discussion of recent advances in granular materials research. The fifty-seven presentations are distributed among researchers in physics, mathematics and mechanical, civil, and chemical engineering. Participants come from universities, national laboratories and industry, and from twelve countries.
%%%